Waveguide Bimodal Launcher for Fiber Optic Security Link

9360374 Asawa The goal of the Phase I research is to design, fabricate and test a new type of planar waveguide bimodal launcher which is able to launch low order data modes and high order monitor modes simultaneously into graded index optical fiber for use in a secure communication link. Graded-index fiber links have wide bandwidth and high security capabilities. Three launchers will be fabricated and tested for security and stability performance. The launchers will have increased capabilities with two feedback channels and an additional channel for performing OTDR diagnostics of the fiber link. The feedback channels will be used to stabilize the data and monitor diodes and OTDR channel will be used to determine the health of the fiber optic link and also to pinpoint the point of intrusion when it occurs. The waveguide launcher has a potential for low cost in production due to photolithographic preparation of the waveguides and for thermal and mechanical stability due to no moveable mechanical adjustments. ***